Storage Equipment for the Systematic Historic Seneca- Iroquois Archaeological Collections

The Rochester Museum and Science Center seeks support to purchase storage equipment and equip a conservation laboratory, This equipment will be used to house the museum's 1,000,000 item collection of historic Senecas-Iroquois archaeological materials. This systematic collection was excavated over a 65-year period and includes material from every known Seneca village of the 1550-1820 A.D. period. While the collections are already heavily used, the improvements in storage facilities in light of updated collections management techniques, will make them available to an even wider anthropological community. The museum has a long-standing commitment to its collections. It is currently constructing a new storage and research facility that will replace and significantly improve the existing facility and equipment that was built in 1940. It is anticipated that the new storage facility and collections maintenance plan will stop the rapid rate of deterioration currently affecting the collection. This collection is a major scientific resource and a primary anthropol- ogical data base. It is unique for researchers in that it represents the only sequence for a major northeastern tribe which is unbroken and which contains sufficient materials from multiple sites to allow extensive documentation and comparisons. The materials tell anthropol- ogists a great deal about contact between Native Americans and Europe- ans and are the principle resource for interpreting Seneca-Iroquois culture throughout a period of rapid change.